Oceanographic Instrumentation

PROGRAM: Oceanographic Instrumentation Scripps Institute of Oceanography (SIO) requests funding to purchase shipboard instrumentation in support of NSF-funded research. The instruments will be used aboard the research vessels operated by SIO, including the MELVILLE, NEW HORIZON and SPROUL. All of the instruments are for shared-use by a wide variety of scientists. Instrumentation to be purchased include differential GPS systems for the MELVILLE and the NEW HORIZON, computer upgrades for all the ships, upgraded airguns, spare parts for the oxygen autotitrator systems and coloimeters, altimeters, salinometers, temperature probes and one 36-place rosette for WOCE cruises.